Mathematical Sciences: Probability Theory

The principal investigator will work on the boundary lines of probability theory and classical analysis. The process of interest is Doob's h process. It is a conditional Brownian motion starting at a point in a domain and conditioned to exit the domain at a given point or to hit a given point before exiting the domain. The h processes have close connections to a number of non-probabilistic quantities in several areas of analysis. Thus the study of h processes simultaneously sheds more light on the probabilistic behavior of the conditional Brownian motion and provides a vehicle to apply probabilistic results to various area in analysis. The specific topics of study include martingale transforms, connections between the Cranston-McConnell theorem and the first eigenvalue, and the integrability of the first eigenfunction on unbounded domains.